Symposium on the Icelandic Plume and Crust

This symposium will bring together US, Icelandic, European, and Japanese investigators who have been working in Iceland. The symposium will synthesize the present state of knowledge regarding the Iceland plume and its mantle structure and melting process, its crustal structure and volcanism, and its interaction with adjacent spreading centers. It will also identify the outstanding scientific problems that remain to be addressed and recommend future research to solve these problems. The symposium will be supported by the National Science Foundation, the Icelandic Research Council, and the Svartsengi Geothermal Power Plant of Iceland.